Addition of Engineering Workstations and CAD Software to an Engineering Computer/CAD Local Area Network

This project adds three engineering work stations and mechanical and civil engineering software to a recently installed Computer Aided-Design network. The completed system forms an integrated "Engineering Computer-Aided-Design" center. The design center strengthens the design content of the engineering curriculum and makes the new technology available to the students. This award is being matched by an equal amount from the principal investigator's institution.